Understanding earthquake hazards and critical minerals across the East Coast passive margin

Stretching of the Earth's plates created deep basins with volcanic rocks along the eastern coast of North America. Scientists do not fully understand why these features formed where they did. This project will use gravity and magnetic data to map hidden structures deep underground to understand how and where faults, magma, earthquakes, and valuable mineral deposits formed. This research could improve both mineral exploration and earthquake hazard assessments. The project will train undergraduate researchers and create a hands-on STEM activity focused on critical minerals for K–8 students.

Magmatic and faulting processes accompanying rifting created deep basins along the length of eastern North America continental plate. However, there is no consensus on what controls the location of deformation (strain) and magmatism during rift evolution. One testable hypothesis is that lateral crustal heterogeneities associated with composition, rheology, and favorably oriented pre-existing shear zones concentrated strain and localized fluid flow. The research will use new and existing potential field data to evaluate the hypothesis that lateral density contrasts of considerable depth extent (e.g., Mesozoic border faults, mineral-rich intrusion zones) contribute a significant deviatoric stress that may facilitate the movement of fluids and localize strain. This study will apply multi-scale wavelet-based methods to gravity and magnetic data to identify steep crustal boundaries calibrated with known faults and mineral occurrences to develop new exploration models. Statistical methods will be used to test the hypothesis that mineral occurrences and intraplate seismicity along the East Coast correlate with crustal heterogeneities. The 3D images will identify magmatic rocks and hydrothermal alteration zones that are potentially metal ore bodies. They will delimit sedimentary basins containing economic concentrations of critical minerals like copper, zinc, manganese. The comparison between structures delineated in the wavelet-based approach will inform earthquake hazard assessment. The project will support a postdoctoral fellow and will train undergraduate researchers. The outreach activity entitled will be designed and tested with K-8 students.